REU: Computer Science Institute

The REU Computer Science Project at Northern Michigan University will be comprised of two distinct but related tracks, research projects in heuristic search directed by Hal Martin and research projects in logic programming and programming environments directed by Don Faust. Before the beginning of the eight week project, each student will be expected to have familiarized himself or herself with the fundamental ideas of either heuristic search or of logic programming, depending upon the track of the program in which they are participating. In heuristic search this will be the first three chapters of Nils Nilsson's "Principles of Artificial Intelligence" and Part 1 of Judea Pearl's "Heuristics: Intelligent Search Strategies for Computer Problem Solving", and in logic programming will consist of either Chapters 4, 5 and 6 of Nilsson's "Principles of Artificial Intelligence " or some standard treatment of the first-order predicate calculus together "Foundation of Logic Programming". By no later than the beginning of the third week each student, in either the heuristic search group or the logic programming and programming environment group, will have begun work on a particular research project. Project leaders will encourage, but not insist upon, students working jointly on projects in teams of two or three.